Mathematical Sciences: Projective Modules Over Affine Rings

The principal investigator on this project will continue studying the structure of projective modules over affine algebras and their application to ideal theory of affine algebras. Specifically, cancellation properties of projective modules and the question of set-theoretic complete intersection for affine varieties will be investigated. The principal investigator will also consider embedding questions for affine varieties. This research is concerned with questions involving algebraic geometry and commutative algebra. This is a very active area of mathematics at present. The outcome could have a substantial impact on the directions in which this area is heading.